Charter Party Agreement

9633777 BARBER The NSF-owned Research Vessel CAPE HATTERAS has been operated under a charter party agreement by the Duke/University of North Carolina Consortium since it was put into service in 1981. This project extends the University's operation of the CAPE HATTERAS for five years under an updated, modified charter party agreement. ***